Mathematical Sciences: On Motions of Nonlinear Materials with Dissipation

In this project the principal investigator will study the equations of motion for viscoelastic materials, thermoelastic materials and thermo-viscoelastic materials. In particular, he will use the techniques of mathematical analysis to investigate the existence of smooth solutions for all time and their asymptotic behavior for large times, the formation of singularities such as shock and rarefaction waves from initially smooth data, and the existence of weak (i.e., nondifferentiable) solutions. The goal of the work is to understand rigorously the nature of nonlinear elastic responses of materials that are subjected to dissipative forces such as viscosity and heat. Many materials of importance in science and technology exhibit an elastic response that is modulated by the presence of dissipative forces like viscosity and heat. The most striking manifestation of this modulation is the actual breakdown of the material in a finite time due to the formation of shock waves. Thus it is very important to understand the interplay between dissipation and the formation of shocks. In this project the principal investigator will prove rigorous results concerning the formation and propagation of shock waves in systems of equations that model the behavior of nonlinear elastic bodies in the presence of viscosity and heat.